Mentoring and Scientific Values

9311328 Sprague The literature on mentoring relationships largely concentrates on management and the development of leaders for business. This is rather surprising since higher education, particularly graduate study, bases itself on the mentor model. Available evidence indicates that mentors have considerable influence over the developing careers of students. There is some anecdotal and descriptive information but almost no quantitative data on the influence of professors-mentors on the development of scientific values and ethics in students. There is no literature about the impacts of gender, race and nationality in these relationships. This project proposes to begin to gather information and develop methods to investigate these matters from the standpoint of values and ethics in science. This first phase involves a pilot study and interviews of a sample of faculty-student pairs to obtain information on what both mentors and students consider important in the mentoring relationship with respect to values. Both formal mentors, those designated by the university, and informal mentors, designated by the student, will be interviewed in each of seven departments: biology, chemistry, computer science, earth sciences, economics, physics, and psychology. Results from this study will provide more qualitative information about the characteristics of mentor relationships. The data base will make it possible to develop a comprehensive list of areas of values influenced by mentors, and begin to construct a psychometrically sound questionnaire which could be administered to a larger sample. ***